Dissertation Research: Children, Consumerism, and Social Reproduction in a New England City

This project supports the dissertation research of a cultural anthropologist studying the enculturation of children as consumers in an eastern city (New Haven). Ten-year old children from a middle class and a poor neighborhood will be studied through focus groups, observations of individual play sessions, structured interviews with children and parents, and participant observation. This study's contribution to the understanding of consumption will be in documenting the process of children's enculturation as consumers, by studying children as active participants in the process of learning consumer-related skills. As a study of one case in the world's largest consumer society, this project will help us understand the ways people become consumption-oriented, which can help us design programs and policies to moderate the excesses of consumption.